From Frames to Events: A Statistical Approach to Activity Analysis in Multi-Camera Systems

From Frames to Events: A Statistical Approach to Activity Analysis in Multi-Camera Systems

Venkatesh Saligrama and Janusz Konrad, Boston University, MA 02215

Unlike other sensors, cameras provide excellent resolution, long viewing range,
wide field of view and low latency thus permitting pervasive, wide-area visual
surveillance. However, most network cameras deployed today are simple
capture/compression/transmission devices, at most supporting rudimentary motion

detection; all higher-level processing is highly centralized. This centralized
architecture stems from human-centric visual analytics as well as limited
in-camera processing capacity, and is not scalable to large multi-camera
systems. With over 30 million surveillance cameras in use in the United States
today, that produce 4 billion hours of video footage per week, monitoring by
human operators is obviously not sustainable. An autonomous, distributed,
bandwidth-efficient, real-time video analytics system is needed.

This project makes a step towards building such a system. At its core is a
novel statistical framework for activity discovery and analysis that departs
from the centralized model and leverages processing power of camera nodes.
While traditional activity analysis operates at object level, e.g., objects are
identified, tracked, and tested for abnormality, methods under development in
this project employ activity analysis at pixel level. If the abnormal activity
is reliably identified, then object extraction and tracking focus on region of
interest and thus are relatively straightforward, on account of absence of
clutter. In order to reliably identify pixel-level abnormalities, or more
generally activities, a novel event-based video representation is used that
decomposes video into iid samples lending itself to the application of
statistical learning. In order to facilitate multi-camera collaboration,
geometric invariance of dynamic events is exploited thus bypassing the
difficult issues related to 3-D geometry dependent on viewing angles.